Student Research Projects for Multivariate Calculus

Student research projects are extended mathematical and scientific projects involving a variety of skills, frequently using computer capabilities, and requiring a final written report. They are effective means of integrating technology in larger classes. The Department of Mathematics and Statistics is implementing student research projects in multivariate calculus for undergraduates as the initial step of the reform of its entire mathematics curriculum. This implementation is an expansion of previous experiments in selected sections of the multivariate calculus course. A classroom laboratory is being constructed with networked workstations and audiovisual capability, initially serving about 150 calculus students each semester. As the program expands, the laboratory can also serve students in undergraduate courses in linear algebra, differential equations, and mathematical modeling. The laboratory is a center of efforts at the university to influence the direction of calculus reform through workshop programs for in-service teachers, programs in mathematics education for preservice teachers, and collaboration with other institutions in the U.S. Military Academy Consortium.